Mathematical Sciences: Development and Application of Mathematical Methods for the Sciences

This is a continuing program of research and cooperative training by four professors specializing in applied mathematics. Their work concentrates on the application and development of functional analysis, asymptotics and scientific computing; it emphasizes the integral connection between these three approaches to scientific discovery. Professor Slemrod plans to investigations on phase transitions and coagulation. Professor M.C. Shen proposes studies of magnetic fluid dynamics, liquid transport in physiology and nonlinear gravity waves. Professor R.E. Meyer intends to improve the approximation of observables in wave processes. Professor J.M. Vanden-Broeck plans analytical and numerical studies on nonlinear surface and internal waves of ship hydrodynamics and geophysics.